WORKSHOP: Enhancing robustness and generalizability in the social and behavioral sciences

Most experimental studies in the behavioral sciences rely on college students as participants for reasons of convenience, and most take place in North America and Europe. As a result, studies are only sampling from a narrow range of human experiences. The results of these studies have limited generalizability, failing to reflect the full range of mental and behavioral phenomena across diverse cultures and backgrounds. However sampling from broader populations is challenging, due to limited opportunities and access, heightened cost, and the need for specific knowledge about how to adapt research protocols to different communities. The goal of this workshop is to develop some tools and guidelines to help researchers overcome barriers to broader sampling, and to incentivize doing so through better institutional support.

The goal of this workshop is to develop tools to support and encourage increased robustness and generalizability in the experimental behavioral sciences. The meeting is dedicated to identifying and developing potential solutions to the so-called "WEIRD people" problem: the fact that most experimental behavioral science research is conducted with members of WEIRD populations (Western, Educated, Industrialized, Rich Democracies). The discovery that much of this research fails to generalize to broader populations and fails to capture the range of human patterned variation in thought and behavior creates a pressing need for research approaches to be more inclusive. Although there are researchers throughout the world who have developed effective models for overcoming these limitations, there are significant barriers to achieving robust and generalizable experimental behavioral research for most researchers. This workshop will bring together scholars from a range of disciplines whose research represents positive case studies of how to overcome these barriers. The participants aspire to accomplish three goals: 1) develop tools and training materials to help researchers enhance diversity in their research populations, 2) develop infrastructure solutions for connecting researchers across diverse contexts and populations, and 3) develop a set of recommendations for institutional changes to support enhancing diversity in experimental behavioral science through manuscript, grant, and tenure review.